Discontinuous Data and Media in Physical Phenomena Modeled by Hamiltion-Jacobi Equations and Conservation Laws

9704864 Ostrov This project is aimed at resolving issues of uniqueness and computability for a class of Hamilton-Jacobi equations and related Conservation laws that contain discontinuous spatial data. It will begin with the Hamilton-Jacobi equation that relates surface height to spatial data collected by Synthetic Aperture Radar. The characteristic curves for this radar equation "flow" in one direction like time dependent phenomena. Due to a monotonicity property of the Hamiltonian, one can establish -- for some cases -- a unique physical solution for discontinuous data as the limit of continuous data approximation viscosity solutions. One can also prove that this unique solution can be simulated by monotone numerical schemes. The first goal of this project is to combine viscosity solution theory for Hamilton Jacobi equations with the theory of generalized characteristics from Conservation Law theory to establish the uniqueness of the solution for most (or all) cases. The second goal is to establish a unique limit for the case of surface reconstruction from discontinuous optical data. The optical data equation does not have "flowing" characteristics and therefore requires Dirichlet, as opposed to Cauchy, boundary conditions. Generalized characteristics are inappropriate for Dirichlet conditions, but recent Control Theory approaches appear to work well in their place. The Hamiltonian is no longer monotonic, but it is now convex, which, it is hoped, can be exploited in a similar manner to the monotonicity property. Finally, these methods will be applied to classes of Conservation Laws with discontinuous media that correspond to the classes of Hamilton-Jacobi equations previously studied. Synthetic Aperture Radar (SAR) is used extensively by NASA (who, for example, collected SAR data for most of the surface of Venus in 1990 using the Magellan probe) and the military. Ideally, one would like to reconstruct a surface from the collected radar data. Thi s reconstruction (called Shape from Shading) can -- from previous work -- be accomplished very quickly for noiseless, continuous radar data. For discontinuous data, which occurs in the presence of ridges (e.g., mountains, cliffs, tank edges, building edges, etc.), it is unknown (a) if only one surface corresponds to the SAR data and (b) if the surface is computable. Previous work has shown that for a number of surfaces there is only one physically likely surface and it is easy to compute. First, this project hopes to show that this is the case for all surfaces. The next goal of the project is to extend this result to optical data (i.e., reconstructing a 3-D surface from a 2-D photograph), which has numerous applications both in industry and in the military (where it is typically referred to as "computer vision"). The final goal of this project is to apply these results to Conservation Laws with discontinuous media (e.g., describing chemical separation with two or more solvents, describing two phase flow, etc.), which is of interest, for example, to Chemical Engineers, who must be able to compute simulations for these situations to maximize chemical conversions effectively in industrial processes.